FET: Small: Non-Boolean computer based on dynamical Ising machines

The exponential growth of amorphous data needed to solve real-time industrial and commercial problems is rapidly outpacing the sluggish advancements of Silicon technology, thereby warranting discoveries of revolutionary non-Boolean architectures and algorithmic paradigms. This project tackles these emerging challenges by exploring, enhancing, and utilizing novel quantum-inspired architecture, relaxation based dynamical Ising machines (RDIM), which introduce a new approach to representing and solving data-processing problems. The research will lay the foundations for a full-range implementation of a novel computational platform, from specialized low-level hardware implementations to human and programming interfaces. This initiative will drive innovations of new algorithms and problem-solving approaches. Furthermore, the research will be integrated with education, training, and workforce development activities, as well as outreach activities with industries to create a pathway for technology transfer.

The capabilities of the architecture advanced within the project stem from the computational significance of the lowest-energy state of classical spin networks (classical Ising model). Consequently, a key characteristic of architecture is the ability to reliably and quickly reach the desired state. To meet this requirement, the project prioritizes developing methods and techniques that ensure the delivery of high-quality solutions. These techniques will be employed within the project to develop general-purpose and specialized algorithms that leverage the unique properties of the novel architecture for solving real-time optimization and data-processing problems in industrial and commercial applications. Additionally, the core architecture will be enhanced by incorporating a hierarchy of higher (beyond binary) spins, thereby improving performance of the machine while solving complex optimization problems. The project will broaden efficient applications of the non-Boolean architecture by developing a framework for incorporating optimization and data-processing constraints directly into the dynamics of the Ising machine.